Cellular Regulation of Actin-Membrane Interactions

The broad-scale goal of this research is to characterize the structure and function of a novel 82 kD protein which was recently identified in this laboratory as a component of adhesion plaques and zonulae adherens of cultured cells. The specific aim of this project is to define the structural features of the 82 kD protein. The primary sequence will be determined by molecular cloning and sequencing techniques. Secondary structure will be predicted and conserved structural motifs and functional domains will be identified. Sequences that are required to address the 82 kD protein to adherens junctions will be defined in transient transfection experiments. Previous work from this laboratory has suggested that multiple isoforms of the protein are present in smooth muscle. The biochemical basis for differences among these isoforms (e.g., post-translational modifications) will be investigated. In addition, rotary shadowing will be used to characterize the molecular shape of the protein. The adherens junctions represent a specialized class of cell-cell and cell-matrix associations that are characterized by the presence of filamentous actin on the cytoplasmic face of the junctional membrane. These include the focal contacts or adhesion plaques of cultured cells, the zonulae adherens (or "belt desmosomes") found in the apical junctional complexes of epithelial cells, the dense plaques of smooth muscle, the fascia adherens of cardiac muscle, and the myotendinous junction. These junctions share in common a number of structural features, though they also exhibit a degree of molecular heterogeneity. The finding of a novel 82 kD protein which is localized specifically to these junctions is particularly interesting. The detailed studies to be performed with this award should lead to an understanding of how these junctions are organized and regulated in living cells.